SBIR Phase I: Electromechanical Mass Transfer System for Space Operations

The broader impact/commercial potential of this Small Business Innovation Research (SBIR) Phase I project will be to advance a novel electromechanical platform for in-space logistics to facilitate economic development, technical and scientific advancement on the lunar surface, and in other low gravity environments. On other celestial bodies (e.g. Mars), this platform can similarly be utilized to enable early exploration and development with minimal wraparound infrastructure investments. The subject of the SBIR project is an electromechanical mass transfer system; this will be the first such innovation that enables a cost-effective mass transfer in low gravity environments leveraging centrifugal acceleration. This platform can enable the movement of resources through space without the use of consumable fuels or on-board propulsion systems, unlocking more cost-effective space operations. The successful execution of this project will enable swift TRL raising of the platform. The comprehensive testing and validation process will demonstrate the capabilities of our technology to potential customers and stakeholders, providing tangible evidence of its reliability, accuracy, and efficiency. The successful development of the platform can provide the mobility required to empower robust exploration, science, and economic development on the surface of the Moon. This platform will be more economical than other alternatives due to its low mass and plug-and-play functionality. Ultimately, the system aims to provide the cheapest, most comprehensive logistics services that catalyze the promising lunar market.

This SBIR Phase I Project will address the technical challenges associated with transporting resources across the lunar surface with a novel electromechanical "throwing" platform. The platform, which utilizes an electromechanical system to throw payloads across the lunar surface, offers an innovative solution for lunar surface logistics and other space-based mobility problems. The goals of the proposed R&D include developing a reliable, accurate, and energy-efficient prototype and demonstrating its feasibility and capabilities on Earth. Lunar operations are complex and expensive, and with novel technology such as the proposed platform, customers and other stakeholders will be looking for assurances that the platform will be both repeatable and accurate. Wear and tear on the system, varying environmental effects such as variable Lunar gravity, and built-in system inaccuracies such as error bands around release angle and velocity can cause a failure that could put customers at risk. The purpose of this effort is to demonstrate with specific hardware improvements that the platform can safely and repeatably deploy assets across the lunar surface.